Georgia State University Conference on the Variability of Active Galactic Nuclei; May 2-4, 1990, in Atlanta, Georgia

This grant is for partial support of a conference on Variability of Active Galactic Nuclei, hosted by Georgia State University in Atlanta, from May 2 to May 4, 1990. One of the most rapidly evolving fields in astrophysics is that of Active Galactic Nu- clei. This is a field in which the high level of current re- search activity makes it very desirable to have a scientific conference on this topic on an annual basis. The last such conference in the United States was held at the University of California at Santa Cruz in August, 1988. It is anticipated that approximately 100 scientists actively engaged in research in this field will attend this conference.